An EPR Spectrometer for Protein and Metal Spin Resonance Analyses

This award from the Chemistry Research Instrumentation and Facilities Program will assist the Department of Chemistry at University of Oklahoma in the purchase of an Electron Paramagnetic Resonance (EPR) Spectrometer. This equipment will enhance research in a number of areas including the following: analysis of allosteric transition metal complexes, electronic structures of Cytochrome P-450 model compounds; characterization of stable free radical/cations and anions, and paramagnetic metallocenes; determination of the distribution of spin density and molecular structure of organocobalt radicals; study of spin states and oxidation states of both porphyrin and nonporphyrin Fe(II) and Fe(III) complexes; photo-EPR, to probe the photogeneration of charges in photoconducting polymers; analysis of nitroxide spin-labeled proteins, and copper-labeled proteins, as a measure of polypeptide structure, folding and conformational dynamics. An Electron Paramagnetic Resonance (EPR) spectrometer is an instrument used to obtain information about the molecular and electronic structure of molecules. It may also be used to obtain information about the lifetimes of free radicals which are often essential for the initiation of tumor growth and/or a variety of chemical reactions.